CAREER: Understanding Behavior in Commodity Software Systems

Commodity software differs in fundamental ways from the workloads typically used in academic research to measure hardware and software behavior in computer systems research. In this project the behavior of commodity software systems will be studied. The project will develop tools for measuring behavior in commodity software, then apply them tools to important problems in computer systems design.